Travel Grant for US-based Student and Postdoctoral Participants to Attend ICPEAC XXV

This project provides travel support for U.S. participation in the XXVth International Conference on Photonic, Electronic, and Atomic Collisions, which is to be held in in Freiburg, Germany, from July 25-31, 2007. Support is limited to those U.S. scientists who are students postdoctoral fellows in an academic, governmental, or industrial institution. Awards will be based on the anticipated contribution by the individual to the success of conference. This award fulfills a critical need for students and young researchers in this area to by bringing them together an international group of leading scientists